Travel: NSF Student Travel Grant for the 2026 ACM SIGPLAN Conference on Programming Language Design and Implementation (PLDI)

A Programming Languages Mentoring Workshop (PLMW) is organized as part of the ACM SIGPLAN Conference on Programming Language Design and Implementation (PLDI), the premier forum in the field of programming languages and programming systems research, covering the areas of design, implementation, theory, applications, and performance. Several of these areas are directly connected to administration priorities in AI and Quantum. Several PLDI papers directly address these priority areas. PLDI 2026 will be held in Boulder, Colorado.

The impact of the award relates to providing opportunities for students to receive mentoring from leading researchers and building the next generation of researchers and knowledgeable practitioners in programming languages and systems. A proper understanding of such topics is crucial to the implementation of tools and toolchains that use artificial intelligence (AI) and machine learning components. The award's broader significance and importance include building international community, lasting professional connections to create and implement tools, and enhancing education of students. By supporting the students, the school thus imparts training to the next generation of researchers in design and implementation of programming languages in both industry and academia, as well as to future application developers.